Transport Processes in Dense Multiphase Systems

Abstract
CTS-9909234
A.S. Sangani, Syracuse University

A combined theoretical and numerical simulation approach will be undertaken to study macroscopic behavior based on microstructure of three two-phase flow systems: bubbly liquids at large Reynolds numbers and finite Weber numbers, sheared suspension of coalescing drops, and suspension of bidisperse particles at high concentrations. A method for computing Laplace and Stokes interactions in which the computational effort increases only linearly with the number of bubbles or particles in suspension will be extended for these situations. The large Reynolds number simulation with deformable bubbles (finite Weber numbers) will extend the previous results for non-deformable bubbles characteristic at small Weber numbers. Drop coalescence induced by flow is considered within drop suspension shear flows. The mixture properties of bidisperse suspensions will be investigated over a wide range of particle size ratios. If successful, the predictive methodology will lead to design methods of various multiphase systems with potential application in processing industries.